Complex and Symplectic Geometry of Complexifications

DMS-0204634
Richard Hind

One can associate to a smooth manifold a symplectic structure
on its cotangent bundle, and to a real-analytic Riemannian manifold
a canonical complex structure on a domain inside its cotangent bundle.
This project will continue work of the investigator studying these
symplectic and complex structures. A broad aim is to discover how
closely the symplectic geometry relates to the smooth structure on
the original manifold, and how the complex geometry reflects the
Riemannian properties. Also, since much symplectic infomation is
contained in properties of compatible complex structures, it is also
interesting to relate the symplectic and complex geometry. Cotangent
bundles are the simplest examples of symplectic manifolds, yet many
fundamental problems in symplectic geometry are still elusive in
these cases. The investigator will conduct research into the
uniqueness of symplectic structures and of isotopy classes of
Lagrangian submanifolds. The complex manifolds we study arise
naturally in many branches of mathematics, notably algebraic geometry
and representation theory. Important aspects of their geometry
remain to be understood, together with analytical problems which
should have applications to number theory.

Symplectic geometry originated as the modern mathematical
language of classical and quantum mechanics. It is now an exciting
area of pure mathematical research, but continues to benefit from
current physical ideas. Since the eighties it has been clear that
much insight into symplectic geometry can also be gained from
studying compatible complex structures. Fortunately the study of
complex geometry has long been a main focus of mathematics. This
project will conduct research into both symplectic and complex
geometry, focussing on interactions between the two. The specific
objects of study arise as the first examples of symplectic
manifolds, and as examples of complex manifolds occuring frequently
in many branches of mathematics and theoretical physics.